Eighth Meeting of the Division of Particles and Fields of the American Physical Society; August 2-6, 1994

9318871 Seidel This grant provides partial support for the meeting of the Division of Particle Physics of the American Physical Society. This is the most widely attended conference of active researchers and most encompassing in subject matter. The grant will enable participation of graduate students to report on their work and attend sessions of interest to learn in detail of the most recent results in particle. It provides them an important opportunity to interact with scientists at all levels of experience. fillin "Enter Proposal Number: " fillin "Enter PI LastName: " *** MAIN O 7) w ! Courier New " 12 $ % B{ 2 ' & 3 ( # + 0 pt - 0 pt : 3 I 1 j " J Ct 1 j " K 1 j " L 1 j " M ? 0 j " N F 8.5 j " G 11 (' j " K d s H ; | Normal Q 1Remember To Save As DOS Text w/Layout File Format Ready To Begin Abstract & ( * , . MAIN O ' 0 2 4 6 8 : v s t * g i x F , ; e g i $ $ ( F / i / 1 Courier Symbol & Arial 5 Courier New ) , I ' ' Sav&e All &Save &Draft6 L P O P G Z \ Q Q Q 2 R m n q s p t u v S S ? S S a S y T } T | T T T T w T T t U U U ** :* AutoNew%Sets up the beginning of the Abstract AutoOpen Sets full menus " h E E ( 3 Chestena Haskins Chestena Haskins - !@ - $ $ $ $ $ $ $ 2 2 2 ; G G W 2 g 4 $ F bullet 1 Courier Symbol & Arial " h